CSR: Medium: Collaborative Research: Architecting Performance Sensitive Applications for the Cloud

Cloud computing offers IT organizations the ability to create
geo-distributed, and highly scalable applications while providing
attractive cost-saving advantages. Yet, architecting, configuring, and
adapting cloud applications (latency-sensitive web applications and
bulk data processing applications) to meet their stringent performance
requirements is a challenge given the rich set of configuration
options, shared multi-tenant nature of cloud platforms, and dynamics
resulting from activities such as planned maintenance.

This project is developing novel methodologies, algorithms, and
systems that can enable application architects to (1) judiciously
architect applications across multiple cloud data-centers while
considering application performance requirements, cost saving
objectives, and cloud pricing schemes guided by performance and cost
models of cloud components; (2) automatically learn effective
application configurations and configuration-to-performance prediction
models through statistical machine learning techniques; and (3) create
applications that can adapt to ongoing dynamics in cloud environments
through transaction reassignment over shorter time-scales, and
application migration over longer time-scales.

The impact of this research is multi-fold: (1) Enable IT organizations
to significantly reduce costs by optimally moving their operations to
the cloud; (2) create benchmarks based on operationally deployed
applications and collecting workload traces which will be made
available to the research community; (3) make developed algorithms and
systems widely available as open source software; (4) inform the
design of a nation-wide health-care cloud in Thailand; (4) introduce
cloud computing related topics in the undergraduate and graduate
curriculum; and (6) train multiple Ph.D., M.S., and undergraduate
students, with explicit effort to recruit and train students from
under-represented minority groups.